CPS: Medium: Collaborative Research: Safe Multi-Task Learning and Control for Autonomy at the Edge

Autonomous systems (e.g., drones, autonomous vehicles, intelligent infrastructure) must operate safely in uncertain environments. However, designing new control systems for every task or hardware configuration is costly and data-intensive. This challenge is magnified for resource-constrained edge devices that may need to make real-time decisions without cloud access. As such, this project develops methods for autonomous systems to enable them to leverage prior experience to rapidly adapt existing controllers to new tasks, environmental variations, or hardware degradation, while guaranteeing safety, stability, and performance. Demonstrated on small aerial robots, this research advances the national interest by enabling safer, resource-efficient autonomy for emergency response, environmental monitoring, and advanced manufacturing. The project will also yield open-source software, train students across robotics and machine learning, and support community activities to broaden access to cyber-physical systems.

The technical objective of this project is to develop a theoretically grounded, computationally efficient framework for safe multi-task learning and control on resource-constrained systems by integrating meta-learning, adaptive control, model predictive control (MPC), and embedded optimization. The first research thrust establishes model-free meta-learning foundations for stochastic, partially observed control systems, proving formal convergence, stability, and sample-complexity guarantees. Crucially, this thrust extends these methods to distributed multi-task learning while ensuring end-to-end robustness against control, planning, and perception noise. The second thrust enables safe, real-time personalization of these controllers via constraint-aware optimization and hardware-software co-design. This architecture extracts system models to enable fast edge-based MPC supporting local and long-horizon safety constraints. Finally, the control loop is integrated with a compressed vision pipeline and validated on physical robot hardware to demonstrate rapid adaptation in dynamic environments.